WORKSHOP: Interaction Design and Children (IDC) 2020 Doctoral Consortium

This is funding to partially support participation by approximately 6 graduate students, along with 5 distinguished faculty mentors, in a Doctoral Consortium (workshop) that will take place in conjunction with the 19th Annual Interaction Design and Children conference (IDC 2020), and which is sponsored by the Association for Computing Machinery (ACM). IDC is the premier international conference for researchers, educators, and practitioners to share the latest research findings, innovative methodologies, and new technologies in the areas of inclusive child-centered design, learning, and interaction. The theme of this year's conference is "Designing for the Future." The IDC doctoral consortium is a forum where students and mentors create a safe space for constructive refinement of the research endeavors of the doctoral students within this important research area. Effort will be made to recruit participants from underrepresented groups and from smaller schools or with smaller research programs. Participants in the workshop create a network that strengthens the overall research community while at the same time advancing their own research through valuable interactions with peers and mentors with diverse perspectives. Additional broad impacts will derive from planting the seeds to a better understanding of how children interact with technology, the impact that technology has on children, and how to design, develop, evaluate, and improve technology for children.

The IDC doctoral consortium is a full-day event that will take place the day before the main conference. Workshop participants will present their research questions, approach and agenda, and receive constructive yet critical feedback from faculty mentors and peers, which will enrich their research by enabling them to better articulate their focus and to refine their research methods and approach. Participants will also present a poster about their research during the main conference, in order to give them further opportunities to connect to a larger scholarly network. Abstracts of the students' doctoral work and progress will be included in the IDC conference proceedings, which are published in the Association for Computing Machinery (ACM) Digital Library.